Investigation of the dynamic pressure surge effect in a fluid-filled fracture through numerical modeling and laboratory experiment

It is well documented that naturally occurring earthquakes, even those located thousands of kilometers away, can dynamically trigger other earthquakes by the passage of a weak vibrating seismic wave. Furthermore, seismic waves can also induce liquefaction and volcanic eruptions. However, the physics of these triggered phenomena are unknown. This work will focus on understanding the physical conditions that can trigger earthquakes, either by passing seismic waves or by human activity, such as fluid injection at wells. Specifically, this study will investigate a pressure surge phenomenon, which could be the common underlying mechanism for all these triggered phenomena although in different geological settings. The investigator will use both numerical modeling and physical experiments to discriminate between competing physical mechanisms that lead to earthquake triggering. Elucidating the triggering mechanism has broad and fundamental societal impact in the mitigation of natural hazards. This work will support an early career faculty member and a graduate student.

The passing of weak seismic waves not only can suddenly trigger earthquakes but can also change the fluid permeability of a hydrologic system, cause liquefaction and bring on volcanic eruptions. However, what mechanisms control all these different triggered occurrences are largely unknown because the stress perturbation due to the seismic wave is extremely small and it is on the order of a few thousand Pascal, equivalent to the weight of a few coins. Finding the underlying triggering mechanism has been a central problem in Geophysics. This 2-year study seeks to make a fundamental breakthrough in understanding these triggered phenomena. The investigator recently identified a dynamic pressure surge phenomenon where the fluid pressure in a fluid-filled fracture can increase 2-3 orders of magnitude relative to the incident wave pressure. The increase in fluid pressure can reduce the effective confining pressure to trigger earthquakes or to produce a pressure gradient to drive fluid flow. This newly discovered effect could be much more pronounced for a low-frequency incidence seismic wave than that for a high-frequency one, which agrees with observations. In addition to its frequency-dependence, the pressure surge phenomenon also depends on the fracture geometry and aperture. This project will investigate a scientifically testable hypothesis, which can fill the knowledge gap in understanding triggering of many phenomena, including earthquake dynamic triggering. To test this hypothesis, the investigator will use both high-performance computing on numerical models and laboratory experiments. The proposed idea and approaches are promising and may have far-reaching consequences in not only the earthquake but also the volcano hazards mitigation. In addition, the insights learned from this project can be used to create new subsurface sensing and imaging methods, useful in carbon sequestration, nuclear waste disposal, and unconventional/geothermal energy development.